Engineering Two-Dimensional Crystals

Abstract
CHE-0316250
Matzger/Michigan

Professor Matzger and his coworkers at the University of Michigan are examining the spontaneous self-assembly of physisorbed monolayers for the formation of two-dimensional crystal structures. With the support of the Analytical and Surface Chemistry Program, this group is combining computational design, organic synthesis, and scanning probe microscopic characterization to produce surfaces patterned at the nanoscale. This approach is applied to the formation of polymer monolayers by reaction of these self-assembled monolayer surfaces. These surfaces are used for heterogenous catalysis, lubrication, and corrosion resistance applications.

With the support of the Analytical and Surface Chemistry Program, Professor Matzger and coworkers at the University of Michigan are examining the structures of physisorbed monolayers. Using scanning probe microscopy to characterize these adsorbed layers, routes to the formation of robust polymerized monolayers are developed. These layers promise application in many areas of tribology and catalysis.